CAREER: Tools for Designing and Integrating Configurable Components

This research investigates the creation and use of configurable adaptable components as Intellectual Property (IP). The research proposes novel algorithms for: (1) choosing an optimal configurable component composed of one or more configurable fabrics, and for (2) synthesizing hardware-independent run time managers. The algorithms are explored in the context of a minimal adaptive component that provides on-demand services to clients (algorithms). This minimal component is comprised of hardware synthesized from different configurable fabrics, and a run time manager. The manager provides on-demand services, such as security checks, buffering, configuration caching, and an API that facilitates utilizing and programming the configurable component.